Redesigning Trypsin Via Mutagenesis

To provide insight into the substrate specificity, catalytic mechanism and structure of a proteolytic enzyme, mutant trypsins will be generated using current methods of protein engineering. Two general approaches are used to alter the enzyme: 1) targeted substitutions followed by analysis of the variant enzyme 2) region specific substitutions coupled with a genetic selection\screen. In each case, mutants of trypsin are generated according to structural and/or functional principles to 1) understand the specificity and catalytic power of the enzyme and 2) use our understanding to alter the activity of the enzyme in a predictable fashion. Variant enzymes are designed, isolated and purified, and their kinetic parameters compared with the native enzyme. Selected mutants are then chosen for more detailed kinetic, theoretical and 3-D structure analysis. Results from the initial modifications will provide a basis for introducing future amino acid changes into the enzyme. Initial experiments have been successful in addressing the role of specific amino acids in substrate recognition and catalytic mechanism of the enzyme and in using that information to alter the enzyme activity using designed metal binding sites. Proposed experiments involve amino acid replacements of active site residues for studies involving the catalytic mechanism and substrate recognition. Variant trypsins are designed by computer modeling based on our current understanding of trypsin and/or its structural and functional relationship to related enzymes such. Methods are also being developed to screen large libraries of variant trypsins using genetic selections and bacteriophage display technologies. %%% These studies will contribute to our understanding of structure/function relationships in the enzyme trypsin and related serine proteases. In addition, these studies will help provide a framework for the de novo design of enzymes. //